RUI: Coronal Heating Studies at the 1991 Eclipse

Heating of the solar corona will be studied by observing the coronal oscillation spectrum at the total eclipse of 11 July 1991. This will be an extremely favorable eclipse in terms of duration and probable viewing conditions. The observations provide a test of a mechanism to explain the heating of the solar corona via Alfven waves. The heating takes place in the region of formation of the solar wind. The proposed new experiment improves on prior observations during eclipses of 1980 and 1983 by improved image acquisition during totality, a major expansion of the frequency range under observation through greatly improved tracking, and through improved techniques of digitization and data recording. Undergraduate students will be actively involved in both the instrument development, testing, and observation activities of this research. ***//